U.S.-Chile: Non Linear Boundary Value Problems

9402928 Schmitt This U.S.-Chile Cooperative Science award will support a collaboration between Dr. Klaus Schmitt, University of Utah, and Dr. Raul Manasevich, University of Chile, in a study on boundary value problems for nonlinear partial differential equations. The purpose of the research is to study quasilinear problems, with the goal of establishing global results about the solution structures of such problems, with emphasis on the development of a bifurcation theory. Problems with nonlinear partial differential equations of elliptic type which are parameter dependent and subject to nonlinear constraints arise in a multitude of applied areas, such as the study of porous media, plasma problems, and astrophysics. The theory of quasilinear equations is just now being developed, and an understanding of the bifurcation possibilities is an important aspect that needs to be studied. Both researchers are considered experts in the field, and their collaboration could result in a major contribution to this area. ***